RUI: High-speed H alpha Imaging of Solar Flares

New developments in solar flare physics emphasize the need to study solar flares with high speed resolution, at sampling intervals below one second. This is an observational effort designed to view flares in the visible spectrum (H alpha) with newly developed instrumentation combining standard video technology with an accurate clock/video time inserter. The flares will be analyzed with a temporal resolution of 1/30th second, to better understand the flare energy release mechanism(s). The system will be installed on a small telescope and will be run by undergraduate students with faculty direction in coordination with measurements at other wavelengths. Participation in MAX'91 and other campaigns is planned as part of this research effort.